Mathematical Sciences: Algebraic, Geometric and Combinatorial Structures Related to Multivariate Hypergeometric Functions

This award supports the research of Professor A. Zelevinsky to work in combinatorics. He intends to investigate problems arising from the study of Aomoto-Gelfand hypergeometric functions and their generalizations. Applications to classical elimination theory, real algebraic geometry, Chow varieties, Grobner bases and matroids will also be considered. The research is in the general area of combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be organized. And, so it is extremely important to modern communications, for example the design of large networks as in telephone systems and the design of algorithms in computer science.